Presidential Young Investigator Award: Atomic Physics

This award initiates support for research in atomic physics by Dr. James F. Kelly, a Presidential Young Investigator. Dr. Kelly will pursue two research topics: 1) a study of the nonlinear response of a collisionally broadened Raman scatterer; 2) the scattering of electrons from heavy atoms.